The Birational Geometry of Moduli Spaces of Curves

DMS-0331315
Angela Gibney

The moduli space of curves is an algebraic variety (more accurately a
scheme or a stack) whose points parametrize isomorphism classes of
algebraic curves of genus g. In studying the behavior of families of
curves, it is useful to consider each curve as a point in the moduli
space, or in the natural projective closure (called the Deligne-Mumford
compactification) whose points correspond to curves with at most
nodal singularities. The components of the boundary are the images of
maps from moduli spaces of stable n-pointed curves. In fact, it turns
out that the birational geometry of these various moduli spaces of
curves frequently reveals interesting properties of families of curves.

One of the most fruitful ways to study the birational geometry of
projective varieties is to investigate the divisors and curves on them.
In particular, it is a fundamental problem to describe the effective
and nef cones of divisors, and hence the effective cone of curves of
these spaces. The research program to be pursued is a many faceted
attack on this problem. The goal is to provide further clarification
of the nature of these cones, the relationships between them as well
as to provide a collection of rich examples which would deepen
understanding of the birational geometry of the moduli spaces and
also broaden general knowledge about cones of curves and divisors.